REG: A Parallel Processing-Human Driven Engineering Computing System for Enhanced Process Control of a Nuclear Reactor System

This project's intent is the procurement of equipment to support process control research at the University of Utah. Specifically, an MSC 1000 Parallel Processing Computer will be purchased and dedicated to initiating and developing a series of innovative computer-man interface research projects in process control. Initial research will focus on enhanced process control of a nuclear reactor system.